Second Generation Integrated Climate-Change Modeling: The NEWDICE Model

Developing numerical integrated-assessment models to understand and develop policies to reduce the impacts of global climate change is a major research priority for the social and natural sciences. This research will continue work by the principal investigator to improve integrated assessment models by developing a new version of the Dynamic Integrated Model of Climate and the Economy (the DICE model). The DICE model is a globally aggregated model integrating a general-equilibrium model of the global economy with a climate system including emissions, concentrations, climate change, impacts, and efficient policy. This research will focus on two specific areas. First, the research will update the underlying data and components to reflect developments in the natural and social sciences since the model was developed. Second, the new version of the DICE model (tentatively called the `NEWDICE` model) will incorporate three new methodological approaches: using a production function to represent the emissions-output tradeoff, incorporation of fossil fuel supplies to reflect the finite nature of the carbon base, and an attempt to incorporate an innovation possibility function to reflect the induced character of technological change.